Calculator Enhanced Instruction Project by a Consortium of NJ Community Colleges

Five community colleges are adapting a calculator-based curriculum for calculus developed at Clemson University. Workshops are being conducted to introduce the ten faculty to the new curriculum and implementation begins in the Spring Semester. The ten core faculty will then introduce the new approach to their colleagues as the new approach is implemented in all calculus sections.